Combinatorial K-theory

The investigator will study the cohomology theory and K-theory of partial
flag varieties and quiver varieties. In particular he will look for
K-theory parallels of known results in cohomology. A first target is the
cohomology and Grothendieck rings of a partial flag variety. Since any
partial flag variety has a cell decomposition into Schubert cells, its
cohomology ring has a basis consisting of the cohomology classes of
Schubert varieties. Likewise the Grothendieck ring of algebraic vector
bundles has a basis of structure sheaves of Schubert varieties. The
investigator will study the structure constants for these rings with
respect to their bases indexed by Schubert varieties. The main goal is to
find explicit formula for these constants, but also positivity questions
are of interest. In cohomology the structure constants are known to be
positive for geometric reasons, but no combinatorial proof of this fact is
known. In K-theory the investigator has conjectured that the structure
constants have alternating signs, i.e. they are non-negative in even
degrees and non-positive in odd degrees. Finding a proof of this would be
very interesting. An additional goal is to find efficient computer
algorithms for calculating these structure constants. The investigator
will also try to find a formula for the K-theory class of the structure
sheaf of a general quiver variety. Such a formula will generalize a
formula for the cohomology class of a quiver variety, which the
investigator has proved earlier with Fulton. The investigator hopes that
proving such a formula will be of help for constructing an explicit
resolution of the structure sheaf of a quiver variety. This would
generalize classical constructions such as the Koszul complex, which is of
fundamental importance in homological algebra.

The development of cohomology theory was motivated in part by the problem
of classifying topological spaces. This is important for addressing
questions such as "what is the shape of our universe?". Cohomology theory
is also an important tool for solving problems in enumerative geometry, in
which one seeks to determine and count all the solutions to a geometric
problem. For example, if the geometric problem is to find lines which
intersect or are tangent to a given collection of fixed geometric figures,
then the number of such lines is desired. A very powerful technique for
solving this type of problems is to construct a space consisting of all
objects which could potentially be a solution. Counting the number of
solutions to a problem is often equivalent to performing a calculation in
the cohomology ring of this space of potential solutions. The objects to
be counted can in many situations be identified with flags of subspaces in
a given vector space. Flag varieties, whose points correspond to such
flags of subspaces, are therefore typical candidates to act as the space of
potential solutions. This makes it important to be able to do efficient
computations within the cohomology ring of a flag variety, and gives the
reason why the structure constants for this ring has been wanted by
geometers and combinatorialists for decades. The K-theory or Grothendieck
ring of a variety can be seen as a generalization of the cohomology ring.
A good understanding of K-theory will therefore give a more complete
picture of cohomology theory. At the same time K-theory is important for
the study of vector bundles on a variety and for homological algebra. This
makes it very natural to try to generalize the known results about
cohomology theory to K-theory.